Experimental Nuclear Physics

This grant supports a program of experimental research in nuclear physics. Nuclear reactions and scattering induced by neutron beams will be measured to search for and study giant isovector resonances. These measurements will be made at the U. C. Davis Crocker Nuclear Laboratory and at the Los Alamos National Laboratory. In addition, experimental studies of collisions of nuclei at relativistic energies will be carried out at the Berkeley Bevalac. The measurements using neutron beams will provide new information concerning large-amplitude vibrational modes of nuclei -- the so-called giant resonances -- and will be complementary to studies carried out with proton and other beams. The measurements of relativistic nucleus collisions will probe the behavior of nuclear matter under conditions of unusual density and temperature.